U.S.-Poland Research on Statistical Physics of Polymeric andMacromolecular Materials

The primary objective of this U.S.-Poland research project between Dr. John S. Dahler of the University of Minnesota and Dr. Andrzej Ziabicki of the Polish Academy of Sciences' Institute of Fundamental Technological Research is to develop theory for various aspects of the physics of polymeric systems. Four areas will be emphasized: 1) Statistical theories of polymeric networks, 2) Statistical physics of liquid crystals, 3) Theoretical rheology of non-Newtonian fluids, and 4) Dynamics and diffusion of polymers and macromolecules. Results should yield new information on the relationships between macroscopic elastic properties and microscopic forces that bind polymer beads. Further, insights should be gained on the influence of factors such as electric and magnetic fields. In the course of their work, the researchers intend to extend the theory of rod polymers to solutions of rods equipped with permanent magnetic moments, and they hope to improve existing theories on polymer dynamics. This project in polymers research fulfills the program objectives of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.